CAREER: Determining Time and Temperature-Dependent Material Properties for Small Components: Integrated Education and Research

The ever-decreasing scale of electronic and micro-electro-mechanical devices
(MEMS) indicate that material properties are needed in regimes which material
length-scale effects cannot be ignored. As industry looks towards polymers
and new soldering alloys, temperature-dependence and creep behavior is of
primary concern. This program will perform novel rate- and
temperate-dependent experiments on length-scales ranging from the sub-micron
to macroscopic, and detailed mechanical modeling to establish the link between
micro-tests and material properties. At the core of this integrated research
and education plan is the development of novel test procedures that will be
implemented into an existing nano-indentation facility. These micro-bend and
micro-torsion tests will be developed within existing senior design and
accelerated master's degree programs. These projects will expose students to
the challenges of cutting-edge product development and research, and provide
them with considerable technical skills not typically found in an
undergraduate program.